2000 Gordon Research Conference on Biopolymers; June 18 - 23, 2000, Newport, Rhode Island

Hall
MCB 9985903

The purpose of the Biopolymers Gordon Conference, to be held June 18-23, 2000, at Salve Regina College in Newport, Rhode Island, is to facilitate the dissemination of ideas and information within the community of investigators who seek to understand and predict the properties of biological macromolecules. This community includes the physicists, mathematicians, chemists, and biologists. This conference will focus on the discussion of experimental and theoretical results on nucleic acids, proteins, and their interactions. The structure, dynamics, and functions of these biological molecules have been the focus of this Gordon Conference since its inception in 1964, making it a unique forum where these disciplines converge.